CAREER: Gamma-ray Astrophysics with STACEE

The PI proposes to carry out observations at the STACEE Observatory. With student participation, she proposes to develop computer software with which to analysis STACEE data. She will also develop a calibration system for STACEE.